U.S.-Australia Cooperative Research on Sea-State Response toVery Strong Wind Forcing: Implications for Remote Sensing and Modelling

This award supports a visit by Dr. Robert E. McIntosh of the University of Massachusetts Amherst to the University of New South Wales, Australia, to work with Professor M.L. Banner to investigate sea state behavior under very strong wind forcing. The proposed investigation would install unique instruments developed at the University of Massachusetts and NASA/Goddard Space Flight Center on a specially equipped Australian aircraft to collect and analyze data that would make significant advances in three important areas. It would (1) establish the aerodynamic drag of the sea surface for very strong wind forcing conditions typical of intense storms, improving our ability to make reliable forecasts of sea state, (2) quantify the attributes of the ocean directional wave spectrum under these extreme conditions, (3) determine the electromagnetic (EM) bias that the TOPEX satellite radar altimeter will be subject to for the very high seas and winds encountered in the Southern Ocean. By establishing the relationship between the wind speed, wind stress, the wind wave field, and the EM bias for very high seas and winds, this project will have a major impact on improving the reliability of the algorithms used in remote sensing of the sea state and marine winds and of ocean forecasting, as well as improving the ability of satellite altimeters such as TOPEX to study the Southern Ocean circulation.